Proposal to Renew the Industry/University Cooperative Research Center at the Center for Research on Information Technology and Organizations (CRITO)

The Industry/University Cooperative Research Center for Research on Information Technology and Organizations is focused on the economic, organizational and societal implications of information technology. With nationally prominent faculty from disciplines such as computer science, economics, and political science, the Center is uniquely positioned to conduct research relevant to the business community, policy makers and consumers. The research agenda will address new or extended thrusts in the following areas: Management of IT, the IT Enabled Enterprise, IT and Society, and User Environments and Technology Enabled Collaboration.